CEDAR Science Steering Committee Chair

This project is to provide for the activities of the Coupling, Energetics and Dynamics of Atmospheric Regions (CEDAR) Science Steering Committee and the production of the CEDAR Post newsletter. The Steering Committee provides leadership for the program and advice to the National Science Foundation program officers who manage it. The main functions are to organize the annual workshop and to review the scientific progress of the program. Funds are requested to defray the costs of committee meetings and the production and mailing of the CEDAR Post.